Domain Decomposition Methods: Algorithms and Theory

Large scale continuum mechanics simulations routinely require
the efficient solution of very large linear or nonlinear systems
of algebraic equations as well as powerful computer systems.
Such problems are increasingly solved on parallel or distributed
computing systems which provide access to a large amount of memory
as well as a substantial number of fast processors. The goal of
this project is to further develop solvers of domain decomposition
type, algorithms which respect the memory hierarchy of modern computing
systems and allow for a performance which approaches peak floating point
performance. There already exists a well developed mathematical theory
and a good understanding of how to adjust these algorithms to problems
arising in different applications but there is also a real need
to further extend our understanding and to improve and numerically
test new algorithms especially in view of emergence of parallel
computing systems with very many powerful processors. A main
goal of this project is the further understanding of the
FETI-DP and BDDC families of domain decomposition methods.

The direction of the work in this field is strongly influenced
by the interaction between academic computational scientists
and scientists at the US national laboratories and in
the engineering software industry. The connection to the SANDIA-
Albuquerque laboratories is particularly strong. Domain decomposition
methods are used extensively in very large and important applications
at these laboratories and the domain decomposition methods are
also making significant inroads in software systems that are used
by a large community of engineers for the design and checking
of machine parts and larger engineering structures. Particularly important
application areas are elasticity and electromagnetics. The latter
field helps create a foundation for improvements of cellular
phone systems, other wire-less communication systems, as well as
micro electronics.